GLOBE-NET: Changes in the Global Environment: A Curriculum Development Project Grades 4-12

New instructional materials that incorporate scientific research on global environment changes will be developed for grades 4-12 to be infused into ongoing curricula. Capitalizing on ten years experience in the development, publication and dissemination of materials on air quality issues, and the network already established between scientists, educators, teachers and students, GLOBE-NET will create, evaluate, and prepare materials for publication which are bias-free and scientifically and educationally sound, taking into account findings of research scientists in subject areas and current research on how students learn science. These materials will be designed to be infused into existing and established courses and study in life, earth, physical, environment sciences, biology, chemistry, physics and other science curricula. Dealing with global environmental changes these materials will provide hands-on experiences, cooperative and inquiry learning and other research-based strategies. The materials will meet the standards of the National Diffusion Network and will be published Carolina Academic Press and disseminated by Carolina Biological Supply Company and others. This project will translate and transfer the most current information on this vital topic - to teachers to students and ultimately to the general public. GLOBE-NET will help teachers, students and parents learn more about science and will lead toward an informed citizenry that is cognizant of scientific issues of major international concern. Cooperators from the SCI-LINK Project, supported by the National Science Foundation, include personnel from local, state and federal government agencies, universities and corporations, many students and teachers from different schools. GLOBE-NET is a joint project of the Colleges of Agriculture and Life Sciences, Physical and Mathematics Sciences, Forest Resources, Education and Ecology, and Behavioral Biology, University of Minnesota.